Impact of Hazardous Materials on Man and the Environment: A Summer Institute with Academic Year Follow-up for San Francisco Bay Area High School Teachers

This project funds a two-week summer workshop providing scientific background and knowledge needed to integrate into the curriculum issues relating to hazardous materials. The program will consist of lectures, discussions, and laboratory work, as well as field trips to a petroleum facility, a geothermal steam field, a regional sewage and water purification plant, an air and water quality testing facility, an agricultural experimental station, and a recycling plant. The workshop during the first summer will recruit 30 secondary teachers of biology from the San Francisco Bay area. During the second summer, 30 secondary life and physical science teachers will be eligible to attend. During the third summer secondary Mentor Teachers from throughout Central California will be invited to attend. The activities during the subsequent academic year will consist of three one-day workshops and visits to the classrooms of the individual participants. In addition to the content material and the support provided by the university faculty and mentor teachers, appropriate curriculum materials will be developed.